The Long-Term Effects of Early Education Intervention

9512670 Currie Head Start is one of the most popular and widely-known early intervention programs in the country. Policy makers and the general public appear to believe that the benefits of Head Start and well-known and well-documented. However, a careful reading of the literature shows that the evidence in support of lasting effects of Head Start is limited. Previous research by the investigators indicates that Head Start has significant effects on the test scores and schooling attainment of young white children and these effects persist into adolescence. But among black children, there is no evidence that the immediate gains associated with any lasting effect on human capital outcomes. However, their research is based on a very small sample and few of the differences are statistically significant. This project will provide further evidence about who gains from Head Start by examining the form of the benefits and the persistence of the benefits using data from the National Longitudinal Survey of Young (NLSY) in combination with the National Longitudinal Survey s Child-Mother files (NLSCM) and the Panel Study of Dynamics (PSID). The NLSY and NLSCM provide an extensive set of information on an array of child human capital outcomes including cognitive test scores and educational attainment. Children in those data are relatively young and so it is not possible to fully examine the longer run effects of Head Start. This gap will be filled by exploiting a special module of the PSID that was designed, in part, by the Principal Investigators of this project. The module contains a rich education history which will be combined with over twenty five years of longitudinal data on labor market outcomes of respondents and their parents. More specifically, this project seeks to answer three questions raised by previous research about Head Start. First, can a case be made for early intervention programs or are child outcomes really largely predetermined by maternal endowments as some have claimed. Second, are cognitive test scores a meaningful yardstick for measuring the effects of early intervention programs, and are racial and ethnic differences in average scores meaningful when judged in terms of more concrete outcomes? Answers to these questions will set the stage for the analysis of the fundamental question: does Head Start participation affect long-term outcomes such as high school completion, teenage pregnancy, criminal activity, and the schooling attainment of the former participants' own children?